Distribution of Research Software via Netlib

The netlib system was designed to send, by return electronic mail, requested mathematical software together with subsidiary routines and any related documents or test programs supplied by the authors. Since its inception, netlib has had a significant positive impact on the infrastructure of the computational science community. This is evidenced by the fact that nearly 150,000 requests for netlib services were received in 1989 and that more than 200,000 were projected for 1990. In this proposal support is requested for routine netlib operation and expansion of its capabilities and the maintenance of NA-NET. The scope of netlib will be expanded to include new software, including tools for symbolic computation. Software will also be added which will allow a user to access netlib interactively.. The use of a production rule expert system the netlib server for those users with less expertise will be investigated.//